U.S.-France Cooperative Research: Molecular Scale Interaction at Mineral-Aqueous Interface

This three-year award for U.S.-France cooperative research in colloid and surface chemistry involves P. Somasundaran of Columbia University and Jerzy Mielczarski of the Institut National Polytechnique de Lorraine, France. The objective of the research is to investigate the interaction of adsorbed ions and molecules, especially, surfactants at solid surfaces. They will study the mechanisms involved in the interaction of different surfactants and organic pollutants with minerals, including fatty acids, alumina, calcite and aromatic pollutants. The project takes advantage of French expertise in calorimetry and in surface chemistry. The underlying science will contribute towards achieving an efficient and low cost means of removing toxic substances from water and other wastes.